A Scanning Electron Microscope for Studies in Developmental Biology

This award supports the acquisition of a scanning electron microscope (SEM) that operates under conventional high vacuum as well as variable pressure mode. The instrument will by used by at least seven research groups at the Cold Spring Harbor Laboratory to study the developmental genetics of plants and animals. Projects that will use the microscope include the analysis of leaf and meristem development in maize and Arabidopsis; analysis of the Arabidopsis flower and ovule development; the developmental genetics of cell death in the nematode C. elegans; developmental biology of GTPase signaling in Drosophila; and the analysis of morphological changes associated with the development of learning and memory in the Drosophila brain. The SEM is essential for these studies.
The Plant Group at Cold Spring Harbor Laboratory is engaged in a systematic search for new mutations in Arabidopsis using gene trap transposon mutagenesis. The SEM will provide a means to rapidly characterize these mutations in terms of morphological changes as well as changes in cell shape or specification. In addition the SEM will be used for training graduate students and postdoctoral fellows, and in the Cold Spring Harbor Laboratory course in Arabidopsis molecular genetics, which has a wide impact on the plant field, and in the DNA Learning Center at CSHL. The ease of use of the variable pressure SEM, compared to conventional SEMs, allows samples to be visualized within minutes of dissection without the need for extensive sample preparation, and the automated settings and the standard operations in 'Microsoft Windows' format means that users can be quickly trained. Therefore the impact of this microscope on research and education at Cold Spring Harbor Laboratory will be substantial.